WORKSHOP: Biennial Social Dilemmas Conference

This award funds a capstone conference for an interdisciplinary community that has held a number of workshops on the topic of Testing Theoretical Models of Individual Behavior in Dynamic Social Dilemmas. The group includes scientists from biology, ecological science, economics, sociology, political science, and anthropology. The workshop will identify promising directions for new research, including methodological and conceptual innovations that combine a wide range of methods include experiments, agent-based simulations, and field observations. The topics include group heterogeneity and fractionalization, the endogenous formation of institutions, and network analysis. The workshop participants will include junior investigators and graduate students; the results will help direct research into new methods that can be employed to help local governments understand a wide range of policy dilemmas.